Collaborative Research: CAIG: Predictability from Stratosphere-Troposphere Coupling Using Physics-Informed Artificial Intelligence Emulators

The extratropical stratosphere (~10 to 50 km above Earth’s surface) and its interaction with the troposphere are important to predict surface weather on subseasonal to seasonal (S2S), -from 2 weeks to 2 months timescales, which plays an important role in disaster preparedness, energy management, and agricultural resilience. In particular, extreme weather events, such as severe winter cold snaps and heavy snowfall across North America and Eurasia, often follow extreme anomalous stratospheric circulation. Current artificial intelligence (AI) weather and climate emulators are fast and increasingly accurate for near-surface prediction, but they often do not represent the stratosphere and its connection to surface weather well, resulting in a pronounced stratospheric "blind spot". This project addresses this limitation by building a bridge between data-driven machine learning and atmospheric coupling to develop more physically consistent AI tools. By clarifying when the stratosphere provides additional information for S2S predictability and predictions, the work aims to uncover critical "forecasts of opportunity" when high-impact surface weather events are more predictable. The project will also cross-train students at the high-demand intersection of geoscience and computer science, integrate new materials into university curricula, and release open-source software pipelines to accelerate improvements in weather forecasting and climate modeling across the scientific community.

The project will develop physics-informed AI emulators for stratosphere-troposphere coupling (STC), incorporating fundamental dynamical constraints into the loss function to achieve a robust and consistent representation of the interaction between the middle and lower atmosphere. Building on the GraphCast weather emulator and the ACE2 climate emulator, the research team will add lightweight correction methods that enforce core atmospheric dynamical constraints without fully retraining the original models. The project will test whether these emulators simulate stratospheric extreme events, their downward propagation, and associated surface temperature and precipitation responses more accurately. It will quantify the resulting gain in S2S prediction skill and identify forecasts of opportunity when surface weather may be more predictable due to the improved representation of STC and active stratospheric conditions. The project will further use the physics-informed AI emulators to examine how tropical drivers modulate the stratosphere and affect regional surface weather. These activities will advance both atmospheric sciences and AI by advancing weather and climate emulators towards physically consistent tools for prediction, uncertainty analysis, and scientific discovery.